Model Uncertainty and Bayesian Analysis of Multivariate Time Series

DMS 9626134 Tsay This research involves two main topics in data analysis for processing information and making inference. The first main topic is Bayesian modeling of multivariate time series. The research seeks to develop a unified modeling approach for a wide variety of vector models. In particular, the investigator proposes a nice method for simultaneous dentification of Kronecker indexes and parameters of a vector process, and considers common features such as common trends, common business cycles, and common nonlinearity in a large system. For co-integrated series, the method identifies the number of common trends at the stage of model specification and, hence, differs from the existing methods that test co-integration rank under a given model. The research employs Gibbs sampler in estimation; it uses closed-form conditional posterior distributions for linear parameters, but augments the sampler with other Markov chain methods such as the Hasting-Metropolis algorithm and the griddy Gibbs to handle nonlinear parameters. The second topic is model uncertainty via data perturbation in time series analysis. The research relaxes the commonly imposed assumption of existence of a model and uses data perturbation to investigate model uncertainty. The investigator uses single and simultaneous data-perturbation to study the impact of model uncertainty on model selection, parameter inference, and prediction. Based on the Kullback-Leibler measure, the research produces a selection criterion that has three components, namely "goodness of fit," "complexity penalty," and "uncertainty measure." This result differs from most of the existing selection criteria that only contain the first two components. Furthermore, the research shows that the impact of "uncertainty measure"is most pronounced when the sample size is small. %%% This research involves two topics in the analysis of a large system for processing information a nd making informed decisions The results obtained are widely applicable in many scientific fields. For example, they can be used in stochastic process control in manufacturing, to monitor simultaneously air pollution indices at several locations in an environmental study, to study common business cycles in macro-economics, and to study common seasonality and trends in ozone concentrations. The research also seeks efficient computational methods to perform high dimensional optimization for statistical estimation. The first topic of the research is analysis of multiple processes in which the investigator develops a unified modeling approach that can identify the complete dynamic structure of a large system. The structure may contain important common characteristics such as common trends, common business cycles, and common nonlinearity. When common trends are present, the method identifies the number of common trends simultaneously with other relationships between the processes. The second topic of the research is the role of model uncertainty in statistical inference. The inference may be prediction, trend estimation, or assessing the effects of a change in an input variable on the output variables. ***